Presidential Young Investigator Awards: Robust and Intuitive Surface Design Methods

Mechanical parts have traditionally been designed by having a designer or engineer create detailed drawings of the part, then having a craftsmen create a physical prototype. The prototype is subsequently evaluated based on its mechanical (and possibly aesthetic) qualities. The results of this evaluation are then fed back to the designer, often in the form of suggested modifications to the part. The construction and evaluation of prototypes is extremely expensive, so the cost of design can be dramatically reduced if the number of physical prototypes can be minimized. This has largely been achieved by using computers (i.e., solid modeling systems) in the design of certain types of mechanical parts. However, there is a class of increasingly important design applications, including the design of automobile bodies, ship hulls, and airplane fuselages, that have not seen great benefits from solid modeling systems. These applications are characterized by their need for compact, efficient, and robust representations of smoothly varying shapes. This research is concerned with providing a better understanding of the problems and solutions of designing shapes containing smooth elements. The use of "free-form" curves and surfaces has shown promise for smooth design applications, but their use has been hindered for at least two reasons: conceptual complexity and robustness. The issue of conceptual complexity stems from the fact that current techniques typically require a great deal of mathematical expertise to use effectively. Insufficient robustness is demonstrated by the fact that currently popular techniques are applicable only in special geometrical situations (for instance, when all surface patches have exactly four neighbors). The project is developing techniques to make free-form design systems applicable in a wider variety of geometrical situations, and also techniques that are more intuitive and natural for designers. Such systems would not only make free-form design accessible to mathematically unsophisticated designers, they would make mathematically proficient users more productive.